DCL INCLUDES: Bridging Engineering Science and Technology (BEST)

The National Science Foundation's (NSF)Inclusion across the Nation of Communities of Learners of Underrepresented Discoverers in Engineering and Science (NSF INCLUDES) program supports models, networks, partnerships and research to ensure the broadening participation in STEM of women, members of racial and ethnic groups that have been historically underrepresented, persons of low socio-economic status, and people with disabilities.

The University of Akron will convene a two-day conference to develop a backbone organization to support the preparation and advancement of underrepresented minorities K-12 through careers in the biosciences, a high growth area for engineering (biomechanics, biometrics and biomaterials). This conference draws on the expertise of a wide range of organizations, professional associations, K-20+, community based organizations, industry and museums. The intent is to strengthen the network among participants and leverage learning on how to engage youth in the biosciences.

The results of this first conference will be a white paper that will be disseminated to several professional societies that outlines a backbone infrastructure for addressing both short-term and longer-term aspects of an NSF INCLUDES alliance centered on bioengineering, biomechanics, biomedical engineering and biomaterials.